Chlorofluorocarbon Measurements on WOCE Hydrographic Sections P14N (179 degrees E) and P10 (149 degrees E) in theNorth Pacific Ocean

In this project the principal investigator will measure and interpret distributions of chlorofluorocarbons (CFC's or Freons), F-11 and F-12, in the Pacific Ocean on hydrographic sections along 179|E and 149|E, designated by the World Ocean Circulation Experiment (WOCE) as P-14N and P-10, respectively. A principal focus would be on the ventilation and circulation of North Pacific Intermediate Water and Subtropical Mode Water. Also to be addressed are inter-gyre exchange and cross-equatorial exchange. CFC measurements have not been made in these regions before, and are integral to WOCE Hydrographic planning.